Video Microscopy of Developing Cerebral Cortex

The investigators will follow the proliferative and migratory behavior of individual precursor cells and their progeny in mouse telencephalon. They will accomplish this by monitoring the spatial and temporal properties of development dynamically in cultured slices of cerebral cortex, which has never been attempted before. Precursor cells in the ventricular zone of the telencephalon will be marked by either intracellular injection of fluorescein dextran, by extracellular labeling of small numbers of precursor cells with a lipophilic dye, or with a retroviral lineage marker. Subsequently, at selected time intervals, the individual labeled cells as well as their progeny will be visualized by video-enhanced confocal fluorescence microscopy.